Enhancing Advanced Biology Investigations with Cell Culture Capabilities

The Biology Department is obtaining equipment to establish a Cell Culture Laboratory for advanced, undergraduate biology courses in Cell Biology, Immunology and Hematology, and Investigations courses (1) to enable current work to be done much more as investigatory research and (2) to enable additional types of cell culture work to be undertaken. These courses emphasize an investigative, hands-on pedagogical strategy in which students are introduced to basic cell culture techniques, then required to design and conduct subsequent experiments, analyze data, and communicate their results. In Cell Biology, students are able to propagate their cell lines for investigations into cellular responses to varied stimuli producing dynamic changes and adaptations in (1) cell morphology, (2) growth, (3) plating and transfection efficiencies, and (4) comparisons of serum protein synthesis by primary hepatocyte cultures with hepatoma lines. In Immunology and Hematology, students are able to address questions of immune cell (1) activation, (2) surface receptor activation and signal transduction, and (3) cellular cooperation. A 1200-1400-ft2 Cell Culture Laboratory is being equipped with four Class II biological safety cabinets, six CO2 incubators, inverted phase microscopes, centrifuges, and related equipment to provide a dedicated laboratory for 16-student-capacity laboratories. This laboratory provides opportunities for approximately 50 upper-level biology students per year to develop detailed investigations into human and animal cell biology by greatly expanding the range of techniques currently possible.